Collaborative Research: Development of a Particle Tracking System for the Qweak Experiment

Ohio University will design and build two sets of trigger
scintillators for the Qweak experiment at Jefferson Lab. This
important new experiment will measure the weak charge of the proton,
as a precision test of the running of the weak mixing angle, thus
providing a uniquely sensitive probe of physics beyond the Standard
Model of particle physics.

The trigger scintillators are an essential component of the Qweak
particle tracking system, and will be used to start the electronics
and to veto neutral particles during the calibration and background
measurements. Each scintillator will be 225 cm x 16 cm x 1 cm and
made from BC408 or its equivalent. Non-UVT lightguides at each end
will provide a mechanically reliable optical coupling joint. UVT rods
that are 5.1 cm in diameter and 5 cm long will couple the rectangular
lightguide to the photomultiplier tubes. The long edges of the
scintillators will be diamond milled and the ends finished to a 600
grit sanded finish. Given the extreme ratio of thickness to length,
the scintillator counters must be supported by a frame which is then
mountable to the rear chamber package. To reduce radiation damage,
this package will be removed from direct view of the beam for the high
current running mode.

The assembly and testing of the detectors will be done at the Ohio
University Institute for Nuclear and Particle Physics by a graduate
student and at least one undergraduate student, under the supervision
of Professor Opper. The Ohio University group will also develop the
fast triggering system which is required for this experiment.
When the detectors have been deemed ready for installation, the
students will participate in their commissioning at Jefferson Lab.